Nonlinear geometric evolution equations

Abstract - DMS - 0805143

There are two classes of problems on which this project is
focused. The first is about the geometric and analytic
properties of the Ricci flow equation and their applications to
the study of geometry and the topology of manifolds. Secondly,
there are a couple of nonlinear partial differential equations
appeared in the applied science, to which some techniques and
results obtained by the PI are related and can be applied. The
first part of project consists of the classifications of
self-similar solutions, namely gradient solitons, and the
convexity type estimates for Ricci flow solution in high
dimensions. Such results have far-reaching consequences in the
applications of Ricci flow in the study of
geometric-topological structure of the manifolds. The second
theme of the project is about the sharp gradient estimates of
Li-Yau-Hamilton type, related monotonicity formulae and their
applications in geometric nonlinear PDEs. Their relations to
physics, statistical mechanics in particular, shall be studied
too. The aim is to discover a fundamental physical/geometric
principle to unify various sharp estimates and monotonicity
formulae. It will also provide the guideline for further
discovery of the new monotonicity formulae in other geometric
partial differential equations.

The project is on the geometric and analytic properties of
Ricci flow, one of the most important geometric partial
differential equation in mathematics and physics. The
completion of the project will enhance the current
understanding of the singularity formation of the Ricci flow
equation and its relation with several branches of applied
science and theoretic physics. By giving lectures for general
audience including high school students, writing several
monographs and survey articles, the project contributes to the
dissemination of enhancing the scientific understanding of
mathematical community as well as the general publics.